Lagrangian Floats for the WOCE Deep Basin Experiment

A central element of the theory of the general circulation of the ocean is the overturning in the meridional plane. This proposal, an element of the World Ocean Circulation Experiment (WOCE), will deploy mid-depth floats in the Brazil Basin as part of the Deep Basin Experiment (DBE). The investigators will obtain displacement and velocity, as well as temperature and conductivity from floats tracked acoustically for up to 2 years. The data will be analyzed in concert with fixed moorings, hydrographic measurements of the density field and tracers, and numerical models. Major components of the DBE will be done by other countries.